Heterogeneous Atmospheric Chemistry: Modeling Tropospheric Processes and Effects

92166646 Turco This research project will continue the establishment of a comprehensive modeling capability for tropospheric heterogenous chemical processes and effects. A hierarchy of models will be developed to study systematically the chemical phenomena occurring on aerosol and cloud particles. The models will treat the basic physical and chemical processes of gas-particles. The models will treat the basic physical and chemical processes of gas-particle interactions, which will be calibrated using laboratory and field data. The heterogenous physics and chemistry models will be coupled to models that simulate atmospheric dynamics (and radiative transfer), allowing applications to problems including the evolution of sulfate aerosols in the marine boundary layer, the chemistry that occurs on ice in cirrus clouds, and the relationship of atmospheric chemistry that occurs on ice in cirrus clouds, and the relationship of atmospheric chemistry to cloud radiative effects. These models will be unique in several respects. They will be based on fundamental processes -- for example, nucleation and surface adsorption -- to achieve more realistic mechanistic treatments of heterogenous processes than are presently used. The models will be more quantitative in defining coupled physical and chemical processes, and will be designed for integration into comprehensive tropospheric chemistry simulations. This research program emphasizes model development and student training in atmospheric chemistry and climate.